An Integrated Approach for Quality of Service in Cluster Networks

Multiprocessor interconnects have been designed primarily to provide high
throughput and low latency for best-effort traffic. This is true for
processing node architectures and communication software as well. However,
with the increasing use of these systems (clusters in particular) for
interactive applications such as multimedia, web servers and electronic
commerce, predictable communication performance, called Quality of service
(QoS), has become a major concern. Many of these applications require
guaranteed communication delay and bandwidth, in addition to low latency
and high throughput. The main focus of this research is to design an
end-to-end communication infrastructure for a cluster system to support
different applications with varying QoS requirements. The research
activities include (1) router architecture design and evaluation to provide
predictable and high performance; (2) network interface and software
messaging layer support to inject/eject traffic into/from the network as
per QoS requirements; and (3) CPU scheduling mechanisms that propagate
these capabilities up to the application level. The research proposes to
seamlessly integrate these three components to provide a high performance
communication architecture with QoS guarantees.